PYI: Data Management in Object Oriented Systems

The focus of this research project is object based systems, especially with respect to support of design activities involving more than one person. Design involves the manipulation and reliable storage of large amounts of data. Hence, design systems require database support. However, compared with traditional (i.e., business oriented) databases, design data is considerably more structured and varied. More complex constraints of many kinds are imposed (physical laws, legal requirements, organizational goals, consistency etc.). Such databases have been called object oriented databases (emphasis on the variety of structure) and knowledge databases (emphasis on constraints and reasoning). The approach taken to supplying such databases is to merge object oriented programming language concepts with database functionality to produce a smoothly integrated language/database system. There are two main categories of problems: providing functionality, and achieving sufficient performance. Past work on nested transactions has been influential. Further understanding of object based systems can have considerable impact.